Mathematical Modeling and Information Acquisition: An Integrated Approach for Dynamic Decision-Making

Many operational problems encountered in practice require dynamic decision-making based on incomplete information about the constantly changing operating environment. Often decision-makers have the opportunity to acquire additional information about the current state of the system before making a decision. Obtaining more information enables the use of a more accurate and detailed model, thus improving the quality of final decisions as measured, for instance, by the expected payoff. However, acquiring information is usually expensive (especially if imputed costs for time delays are included), with higher costs incurred for more accurate and extensive information. Thus, gathering complete information may not always be cost effective. The proposed research explores this cost-benefit tradeoff in contexts where operations research models are employed for decision-making. Rather than separate the problem specification from the model formulation and optimization, the two are treated in an integrated manner. A 'meta' model is defined for evaluating the tradeoff between improving the quality of decisions through increased model precision and the cost of information acquisition to achieve the increased precision. The problem of routing messages in a network is examined in this framework and both optimal meta algorithms and good heuristic approaches are proposed for solving the problem. In a recent N.S.F. sponsored workshop entitled "OR - The Next Decade," one of the research topics emphasized was the development of a theory on the trade-off between data gathering, model specification, and decision-making. The results from this research should advance knowledge in that area.